Multiscale Experimental and Computational Investigations of Erosion-Induced Failure of Levee Systems

Geotechnical systems involve a number of elements such as the porous media, composed of soil grains and pore-fluids, interacting with a structural system such as a foundation or a retaining structure. The resulting system is thus very complicated and becomes increasingly complex if it is subjected to extreme loading conditions such as those encountered during earthquakes or hurricanes. A prime example of failure of geotechnical systems that includes a structural element is the collapse of the flood-protection levee I-wall in the aftermath of Hurricane Katrina in New Orleans, LA. Current engineering tools and procedures are very limited in modeling the dynamics of the interactions between the flowing water, the soil media and the levee structure. To address this issue, the present work will develop a high-fidelity multiscale approach to provide as much information as reasonably feasible about the possible separation between the structure and the soil as floodwater rises, the impact of such separation on the distribution of water pressure surrounding the structure, and the potential occurrence of piping and scour in the soil media near the structure.

The activities of this interdisciplinary research effort are centered around the following goals: to provide an experimentally tuned and validated, and thus predictive, computational research tool for the analysis and design of geotechnical systems subjected to extreme loading conditions; to resolve the fluid-particle interaction coupling term needed to model the mechanism of flood-induced erosion of levees; and to explore the complex response of flood-induced failure of levee systems under representative flooding scenarios. A novel experimental program will investigate the interaction between a fluid and embedded particles. Using transparent particles embedded in a matched-index-of-refraction fluid, the combined motion of the fluid and densely-packed particles will be measured using a combination of digital particle image velocimetry (DPIV) and direct imaging of the embedded particles. Taking the particles as surrogates for sand and/or soil particles, the experimental results will serve to construct a model for the lift force on particles - which is necessary for accurate simulations - and validate the computational method. A multi-scale computational approach that combines the best features of continuum-based techniques and microscale models will be constructed to idealize the soil-fluid-structure system that represents a levee. Floodwater will be modeled using a computational fluid dynamics (CFD) approach that utilizes the Arbitrary Lagrangian Eulerian (ALE) moving mesh technique for proper modeling of the fluid free-surface and fluid-structure interaction, far-field soil media will be idealized using the finite element method, and near-field soil media will be modeled using the discrete element method coupled with a CFD technique. The different scale subdomains will be coupled through proper transfer of contact information at their interfaces.

The outcome of the proposed work will improve the understanding of the complex behavior of geotechnical systems and contribute to hurricane risk assessment. The proposed computational framework will equally benefit other important geotechnical engineering applications such as the seismic response of quay walls, impact of storm surge on offshore structures, and the dynamic response of retaining structures and deep foundations. The outreach activities in this project utilize existing programs at Southern Methodist University such as Visioneering and SMU Engineering Summer Camps for Girls to promote interdisciplinary engineering to Middle and High School students from the local Dallas-Fort Worth Metroplex.